Digital Image Processing for Undergraduate Studies in Geological Sciences

This award to Cornell University's Department of Geological Sciences is made in response to a proposal submitted to the National Science Foundation's Instrumentation and Laboratory Improvement Program. The award will provide one-half of the funds needed to acquire a digital image processing system. The University is committed to matching the NSF contribution for this equipment. The equipment will be used in the University's undergraduate geoscience courses from the introductory to the senior research projects level in order to make possible student access to the University's considerable research library resources of digital data. Images for analysis and study will be drawn from sources such as the Landsat Thematic Mapper, SIR-B Shuttle imaging radar, SPOT satellite imagery, COCORP reflection profiles of the U.S. continental crust, and various other gravity, topography and seismicity digitized data sets. The library provides a rich source of images of landforms and earth-interior geophysical information for illustrating structures in introductory courses and for problem solving exercises based on real examples for more advanced courses.